CISE Research Infrastructure: Cooperative Teraflop Infrastructure for Grand and National Challenges (ARI)

9502957 Levine The proposed project is to add additional hardware infrastructure to provide low latency and high bandwidth connectivity between the vBNS and supercomputers at each supercomputing center. It will also connect network-attached disk arrays to provide very short term storage buffering for running the distributed applications. These added components will integrate the four independent supercomputing centers into a single distributed teraflop computing facility. This integration will provide a testbed for a number of development and development projects in applied computer science and computational sciences. ***